A Workstation Environment for Real-Time and Multiprocessor Digital Signal Processing Research

Workstation based digital signal processing environment will be provided for researchers at Georgia Tech for research in the School of Electrical Engineering. This equipment is provided under the Instrumentation grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Signal Processing Computer Architectures Speech Processing Image Processing General Digital Signal Processing Theory